Mechanisms of Directionally Selective Motion Detection

IBN-9507878 Raymon Glantz A broad spectrum of brain activities, from object recognition to postural adjustments, require that neurons and neural circuits make computations. In recent years, neurobiologists have made impressive progress in two related areas: one concerns the biophysical and molecular mechanisms of synapses and the second concerns the mathematical and logical operations which formally describe what whole systems of nerve cells do. In the study of how the visual system works, algorithms successfully model visual tracking and fixation, binocular vision, and motion detection. Future progress in understanding more about the visual system depends upon integrating the biophysical and algorithmic approaches. This will require detailed information about the structure and dynamic properties of neurons involved in particular computations. Many visual systems can compute the direction and velocity of moving targets. Recent studies indicate that directional motion detection is achieved through synaptic operations embedded in the structure of the neuron's receptive field. The same directional mechanisms were independently found in visual neurons in higher vertebrates and in the crayfish. The mechanisms depends upon spatial and temporal asymmetries of the excitation and inhibition within the receptive field. This project focuses on experimental and theoretical studies of the synaptic mechanisms which support directional motion detection. Physiological measurements will quantify the characteristics of the synapses which form the directional mechanism. The simulations will determine if the measured properties of the synapses are sufficient to support the directional mechanism.